Three-Dimensional Displacement and Strain Measurements UsingDigital Image Correlation and Steroscopic Principles

The purpose of this Research Opportunity for Women project is to increase the applicability of digital image processing techniques in experimental mechanics. An automated system that can measure both planar and out of plane displacements and deformation gradients will be studied.//